Presidential Award for Excellence in Science, Math and Engineering Mentoring (PAESMEM)

HRD 03-28493
The Science and Technology Entry Programs of the New York State Education Department address the mentoring of secondary and undergraduate students for successful transition to high school and higher education through two programs. The programs cited are the Science and Technology Entry Program (STEP) for K-12 students, and the Collegiate Science and Technology Entry Program (CSTEP) for undergraduate ands graduate students.